Advanced Technology Environmental Education Center

Through this project, the Advanced Technology Environmental Education Center (ATEEC) is building upon its strong national position by providing expanded services and innovative leadership to a growing number of constituents including 4-year institutions, environmental practitioners, and the general public. The ATEEC project is structured around the following goals and objectives:

Goal 1: Strengthen science, math and technical curriculum, and instructional materials supporting advanced technology environmental education. Objectives include producing, updating, and revising environmental technology resources, assessment instruments, a "best practices" manual, training and curriculum models, and environmental technology core knowledge and skill list; identifying secondary and community college faculty support needs; and conducting the annual Fellows Institute for secondary and community college teachers.

Goal 2: Strengthen the nation's environmental technician programs through professional development opportunities. Objectives include participating in or conducting annual professional development instructor conferences, a national conference with a
professional association of environmental technology practitioners, a national "Defining Environmental Technology Forum", and a national satellite/on-line teleconference; and developing a national model for business/industry/education faculty internships.

Goal 3: Strengthen education through support services for program improvement.
Objectives include acting as a clearinghouse and resource center to evaluate and disseminate "best practice" instructional materials, activities, and products; updating and revising the environmental technology defining chart and report; and expanding the use of the national electronic job database. This project is directly impacting hundreds of environmental educators and improving the education of thousands of students throughout the nation.